Applications of Operator Algebras and Index Theory to Analysis on Singular Spaces

Abstract
Nistor

The proposed research extends and strengthens
the field of applications of Operator Algebras. It leads to new
results on the structure and representations of groupoid algebras associated
to singular spaces and non-compact manifolds. It leads also
to a new characterization of the Fredholm operators on non-compact
and singular spaces based on representations of groupoid C_-algebras.
Using also methods from Noncommutative Geometry (cyclic homology,
Chern character, smooth subalgebras) the indices and relative indices
of operators on singular and non-compact spaces will be computed.
These index theorems are non-local, so they will lead to spectral invariants,
generalizing the eta-invariant, that will be investigated. The
homology, K-theory, and other invariants of the relevant operator algebras
will also be determined. The spectrum and the structure of the
distribution kernels of operators on singular spaces will be investigated.

The proposed research will have applications to numerical
methods for polyhedral domains, which are important in Engineering
(an example is the method of layer potentials), and to the analysis on
non-compact manifolds with nice ends, which arise in String Theory
and General Relativity. This proposal will contribute to the development
of the general techniques necessary to approach mathematical
and computational problems from Biology, Chemistry, Engineering,
and Physics. It will also contribute to applying mathematical results
in practice by interactions with researchers from other fields, by organizing
conferences, and by advising students, which will lead to the
creation of specialists able to use theoretical tools to handle practical
problems.